Assessment of Barkhausen Effect Measurement for Evalution of Ground Steel

9416983 Gupta This is a "TIE" project on the topic of "Assessment of Barkhausen Effect Measurement for Evaluation of Ground Steel Components," to be conducted by the Industry/University Cooperative Research Center for Grinding at the University of Connecticut and Iowa State University's Industry/University Cooperative Research Center for Non-Destructive Evaluation. The proposed activity is to conduct research to study and evaluate the grinding damage to components by using the magnetic Barkhausen effect measurements. The Center for Grinding Research at the University of Connecticut will be responsible for acquisition of specimens, X-ray characterization and surface grinding. The Center for Nondestructive Evaluation at Iowa State University will be responsible for performing the Barkhausen effect characterization of the material, computer analysis of the signals from the material, identification of relevant Barkhausen signal parameters for evaluation of grinding damages, and correlation of results with X-ray diffraction data. This project is being cost shared with the Industry/University Cooperative Research Center for Nondestructive Evaluation at Iowa State University. The Program Director recommends the University of Connecticut be awarded $50,000 for 24 months to conduct a "TIE" project with Iowa State University.